Acquisition C-H-N-(O-S) Elemental Analyzer at Baruch Field Laboratory

This proposal requests funds to obtain a C-H-N-(O-S) Elemental Analyzer. A C-H-N-(O-S) analyzer of the type requested is required to answer many basic questions relating to physiological, cellular and molecular biology with respect to bioenergetics, reproduction, ecophysiology and life history. Some specific examples include the effects of changing water quality on shellfish examples include the effects of changing water quality on shellfish physiology, the characterization of prey food quality for predation experiments, the establishment of relationships between physiological traits of genetic stocks of various species, the quantification of changes in nutritional characteristics of algae and marsh plants, etc.